Arithmetic Algorithms and Structures for Low-Power Systems

The objective of the proposed research is the development of numerical computing systems which operate with a small amount of electrical power. It concentrates on arithmetic structures and algorithms and models power consumption by the number of signal transitions. These low-power structures are essential for the development of future computing systems. The proposed research will further the understanding of the effect of number representation, algorithm, and implementation on the power dissipation of numerical computation structures. Moreover, methods and technique for the design of low-power structures will be developed, as well as low-power designs for specific operations, such as adders, comparators, multipliers, and dividers.